LIVE: The Laboratory for Visual Environments

We are requesting $100,000 of NSF ILI support for LIVE: The Laboratory for Visual Environments at the University of Pennsylvania. With the requested NSF ILI support and School of Engineering and Applied Science matching funds, we would purchase 24 OpenGL Windows NT systems and networking infrastructure to support undergraduate teaching and projects in computer graphics, visual and virtual environments, and high speed multi-computer networking. Direct manipulation and programming of these concepts is the ideal setting for teaching and learning about complex phenomena. LIVE will upgrade an aging SGI facility, serve Computer and Information Science curriculum needs, and enhance the computer science aspects of a new undergraduate program in Digital Media Technology spanning the Engineering, Fine Arts, and Communications Schools at the University of Pennsylvania.